New Synthetic Methods Based on Group 4 Organometallic Intermediates

The focus of this research is to exploit organozirconium reagents, resulting from standard zirconations of various alkynes, for ligand exchange reactions with Cu(I) reagents, particularly higher order cyanocuprates. Vinyl zirconocenes generated from a number of compounds including acetylenic stannanes and acetylenic ethers afford reagents for multiple C-C bond constructions. The transmetalation protocol will also be extended to Ti and a study of titanacyclobutenes will be initiated. NMR will be used to probe the aggregation states of a number of interesting cuprates. %%% With this renewal award, the Synthetic Organic Program is supporting the research of Dr. Bruce H. Lipshutz of the Department of Chemistry at the University of California, Santa Barbara. Professor Lipshutz will focus his work on developing new syntetic methods that rely on the transmetalations of selected organometallic intermediates composed of Group 4 metals with Cu(I) reagents. The research will lead to the facile preparation of efficient reagents for C-C bond making.